U.S. National Committee for the International Brain ResearchOrganization

This project allows the National Academy of Sciences/National Research Council to assist in the advancement of the neurosciences by: (1) providing for the activities of the U.S. National Committee for the International Brain Research Organization (IBRO), (2) serving as the U.S. Academic Member of IBRO, and (3) providing support for an IBRO Fellow to conduct research in the United States under the IBRO Fellowship Program.